Restructured Physics Learning Environment

The purpose of this project is to change the teaching and learning of physics through the utilization of microcomputers and Calculator-Based Laboratory units as data acquisition, storage, and analysis tools. The acquisition of this technology supports the introduction of Workshop Physics, Tools for Scientific Thinking, Real-Time Physics, and Conceptual Exercises: Overview Case Studies curricular materials and the transformation of instruction from a lecture-oriented delivery system to one that is more collaborative, constructivist, and laboratory oriented. This new technology-rich learning environment also encourages the mastery of new measurement and analysis skills and better prepares the college's physics students for the learning and work environments in which they will eventually find themselves.